Development of Extended-Throat Venturimeter for On-Line Measurement of Gas-Solid Flows

In development of coal-based energy systems, there is an acute need for instrumentation capable of measuring flow rates of solids and gas in gas-solid suspensions under high temperature (up to 1700oF) and high pressure (up to 100 atm) conditions. Several instrumentation concepts have been or are currently under study (i.e., sonic Doppler meters, correlation meters, capacitive transducers, Coriolis-effect meters, and laser-based devices). Many show some promise, although they are quite complex, and others require considerably more development or will be restricted to use only in limited flow conditions. This proposal represents a plan for investigation and development of an innovative gas-solids flow meter currently under development at Energy International, Inc., in cooperation with Washington State University. Preliminary technical and system studies conducted have shown that extending the throat of a typical venturimeter will improve the sensitivity of the device. Further experiments and analysis have shown that the extended-throat venturimeter will be capable of measuring flow rates for both the solids and gas phases without requiring particle size information. The principal investigators are well qualified to conduct this research, and a grant is highly recommended. This is for Phase I of the Small Business Innovation Program Solicitation, NSF 86-19.